Memory Models for Architects and Compiler Writers

A new memory model called Commit-Reconcile \& Fences (CRF) is
presented, and it is shown how other memory models can be described as
restricted versions of it. The CRF memory model has been designed so
that it is both easy for architects to implement, and rich enough that
compilers for high-level parallel languages can use it as a target
machine language. This proposal is for investigating 1. the
integration of CRF into modern microprocessors, 2. adaptive protocols
for implementing CRF in Distributed Shared memory Systems (DSM) and
3. efficient translation of high-level multithreaded programming
models (e.g. Cilk) into CRF.

The impact of this research would be to eliminate a plethora of
implementation-dependent memory models, and to provide a stable
interface for architects and compiler writers. The development of
micro-architectures and cache-coherence protocols to support CRF could
have an immediate impact on industry because these changes can be
incorporated in PC's and servers without the loss of software
compatibility.

Another theme in this proposal is the use of a new formal framework
based on Term Rewriting Systems (TRS) for describing computer systems.
The biggest appeal of TRS's is its naturalness for designers. The TRS
framework is useful in verification of system properties. It is also
possible to synthesize hardware from TRS's. A unified synthesis and
verification framework is likely to have a big impact on current
design practices.